USA PUB Workshop

0549059
McDonnell

The IAHS Decade on Predictions in Ungauged Basins (PUB) is an initiative of the
International Association of Hydrological Sciences (IAHS) aimed at formulating and
implementing appropriate science programs to engage and energize the scientific community,
in a coordinated manner, towards achieving major advances in the capacity to make reliable
predictions in ungauged basins. Now two years into the effort, PUB participants have
defined a set of community science questions in the hydrological sciences with broad
consensus and community buy-in.
As the Consortium of Universities for the Advancement of Hydrologic Science, Inc. (CUAHSI)
begins its community science question-building effort, there is much that can be learned
from the PUB experience—both good and bad. The PUB example provides a potential template
for the USA CUAHSI community.
This proposal requests NSF funding to support the preparation and implementation of a
four-day workshop to catalyse the identification of community science questions by the USA
hydrologic community. Workshop goals are: 1) introduce PUB science processes to the USA
hydrological community; 2) explore the utility of six major PUB science themes as a
potential template for USA community science questions; 3) critically discuss the open
questions in hydrology as they pertain to the establishment of hydrologic observatories;
and, 4) spark dialogue among participants to identify the most promising avenues for the
efficient development of community science questions.
The workshop will be convened by leaders of the USA’s hydrologic science community and
feature presentations by over 30 experts widely recognized in their fields. The workshop
will be among the first to be conducted in association with the newly established National
Center for Hydrologic Synthesis at the University of California, Berkeley. The workshop
will employ the AGU Chapman Conference style that features substantial discussion “space”
to facilitate a high level of thoughtful participant interactions with speakers and each
other.
The workshop’s intellectual merit derives from the clear need for USA hydrologists to
share experiences, debate approaches, and reach consensus on a new science plan that
embodies a response to the growing demand for multidisciplinary approaches to advance the
science of hydrology. The workshop’s nationally- and internationally-recognized speakers
will deliver compelling content over a broad range of hydrologic topics to
participants—all within a format designed to challenge assumptions, optimize debate, and
inform agreement.
The broader implications of the workshop reach to society’s ability to access, understand,
and act upon improved prediction capacities resulting from a new, more holistic, and
effective orchestration of hydrologic inquiry. The workshop will help define a new
trajectory of research that will allow water resources decisions to be made with greater
resolution, in a more timely manner, and with substantially more confidence.